Mid-Atlantic Mathematical Logic Seminar (MAMLS)

The Mid-Atlantic Mathematical Logic Seminar (MAMLS) will have its first
conference of Academic Year 2013-2014 at Rutgers University in either
September or October 2013.
MAMLS was formed in the fall of 1982 under the aegis of Lee Stanley and
has supported 2-4 regional meetings per year of 1-2 days' duration
since then. These meetings are held at various locations and cover a broad
spectrum of mathematical logic, with particular emphasis on
complexity theory, theoretical computer science, fragments of
arithmetic, pure and applied model theory, proof theory,
recursion theory/computability theory, set theory, subsystems of
analysis in accordance with the program of H. Friedman and S. Simpson,
and topos theory. NSF support is provided for some of the expenses
of the speakers and attendees, in particular of the graduate
students and those without access to their own funding.

Via the meetings sponsored, the MAMLS grant maintains the
vitality of the field of mathematical logic. Special emphasis is
placed on enhancing the participation of younger researchers and
members of traditionally underrepresented groups, especially
women. This is done by providing an intellectual forum in which
all interested persons are invited to contribute and in which
there are lectures on current topics of research.

Information about MAMLS may be found by visiting http://mamls.org